Development of a New Fundamental Basis for Fracture Mechanics

9406864 Sinclair This research is to develop an alternative failure criteria to the standard stress intensity factor. The new approach relies on novel modeling of the cracks to achieve better estimates of the crack tip stress fields. The crack is assumed to be an elipse whose root radius is determined from atomic force versus separation laws. ***